SBIR Phase I: Cubic Phase-Stabilized Zirconia Thermal Barrier Coatings Applied via a Novel Chemical Vapor Deposition Route

This Small Business Innovation Research Phase I project will demonstrate the feasibility of producing thermal barrier coatings (TBCs), along with sealcoats engineered to minimize oxygen ingress through the TBC to the bondcoat, by a novel chemical vapor deposition (CVD) route. Success will largely be determined through evaluation of test coupons in actual use conditions. The key innovation of the project is the development of a technique for the application of yttria- and ceria-stabilized zirconia (YSZ and CSZ respectively) using inexpensive metal halide precursors.
Improved TBCs will have wide application to commercial and military propulsion and power generation systems, including turbine and reciprocating